2013 Catchment Science GRC/GRS, June 16-21, 2013 at Proctor Academy, Andover, New Hampshire

Catchments are fundamental landscape units that contain interpretable physical, chemical and
biological signals in their soils, drainage waters and ecosystems and record the effects of
climate warming, atmospheric deposition, land use shifts, catastrophic events and other global
change drivers. Catchment Science, the focus of the Gordon Research Conference (GRC) and
Gordon Research Seminar (GRS) for which we seek financial support, is a truly interdisciplinary
and international endeavor conducted by hydrologists, ecologists and biogeochemists whose
goal is to explore and understand catchment response signals in order to better anticipate future
challenges facing water and ecosystem managers. The purpose of this conference is to bring
together established and developing experts in the field of Catchment Science to share the
results of cutting-edge research, develop new collaborations, and assess where we are and
where we need to go in order to understand the future of catchments in an era of global change.

Intelletual Merit. The theme of this GRC/GRS is "Catchments Through the Looking Glass:
From Microscopes to Telescopes". There is compelling evidence that global change is affecting
the physical, chemical, and biological resources of catchments in many parts of the world, and
Catchment Science is increasingly at the forefront of driving our understanding of the many
implications of global change. As catchment scientists, we each have our own unique
perspectives and vantage points from which we view our scientific approach and interpret our
data. This GRC/GRS will bring together leading experts in the field who will explain how their
particular vision and research environment have shaped the direction of their cutting-edge
research and how their approaches can be useful and applicable to other scientists and endusers
working in the field. The GRC/GRS will focus on four sub-themes that span a broad range
of Catchment Science perspectives: 1) "Changes in latitudes, changes in attitudes", where we
will assess the similarities and differences of conducting catchment science in polar, boreal,
temperate, arid and tropical settings as well as the societal implication and application; "Doors
of perception", which will consider how the scale of our scientific lens, from microscopic to
telescopic and with different levels of stakeholder involvement, shapes our understanding of
catchments; "Animal, vegetable, mineral", where we will explore the inextricable linkages
between biota and the Earth's surface that help to determine catchment function and
sustainability, particularly under climate change concerns; and "Tools you can use", which will
showcase novel analytical techniques and conceptual approaches that have revolutionized the
field. The GRC provides the ideal format for promoting better communication and understanding
of the various research approaches comprising Catchment Science, allowing a more focused
attack on identified issues and improved international collaboration in the future.

Broader Impacts. Our ability to successfully conduct Catchment Science in the future in
response to global change rests largely in our ability to nurture the next generation of catchment
scientists. This GRC will be immediately preceded by our second two-day Gordon Research
Seminar (GRS), the participants of which will be mainly graduate students and recent advanced
degree recipients from the various fields of Catchment Science, as well as senior scientists who
will serve as mentors and discussion leaders. We expect all GRS participants will attend the
GRC conference the following week, with the result of greatly increased participation of young
scientists in the Catchment Sciences GRC series. We anticipate that the GRS is likely to
increase the ethnic diversity of the GRC, attesting to the continually changing demographics in
Catchment Science. In addition, our invited speakers and discussion leaders are nearly half
female, reflecting our efforts to promote gender diversity in our program. The products of these
efforts include increased communication among all levels and fields of catchment scientists, as
well as the dispersal of new ideas throughout the broader scientific community.